An Algebraic Approach to Computational Complexity

The intellectual content of the project is concerned with the study of computational
complexity, which aims at an understanding of which tasks can be effciently performed
by computers, and which ultimately cannot. There is currently an enormous
gap between the very restricted computations in which the ultimate limitations can
be analysed using existing mathematics, and the rich variety of tasks, such as the
search problems that are NP-complete, where the limitations are currently only conjectured.
This project is concerned with a new approach to these problems based on implicitly
exponential models. This approach is inspired by quantum mechanics, which
describes the transitions in physical systems in terms of well understood mathematics,
namely linear algebra, but in order to do so works in high dimensions. In this
project the model of computation is also exponential dimensional, but it needs to be
simulatable by classical computers effciently in polynomial time. In analogy with
quantum mechanics, complex computations are to be expressed in terms of well understood
mathematics, namely linear and polynomial algebra, but at the cost of high dimensions.
The questions being investigated center on whether those high dimensional
representations that can express NP-complete and #NP-complete search problems
are within the class that can be simulated in polynomial time. The approach
can be viewed as a new branch of algebraic complexity theory that is inspired
by quantum mechanics and quantum computation.

With regard to broader impacts the societal impact of the research will depend on
its outcome. Since the main thrust is a new view towards efficient algorithms
for search problems in general, a positive outcome may redefine what is computed
in practice across a wide range of applications. Whatever the outcome the research
will be carried out in an educational environment that includes an expanding group
of diverse students, faculty, postdoctoral fellows and visitors with interests in
the broad research area of computational complexity.